CAREER: Unified Component-Based Framework for Fault-Tolerance

The goal of this project is to develop a unified framework for
developing fault-tolerant systems; this unified framework will provide
the structural continuity to developers of fault-tolerant systems
while they perform several tasks such as design, synthesis, testing,
verification, and refinement. The unified framework will be based on
the use of two fault-tolerance components, namely detectors and
correctors. Dr. Kulkarni has identified these two components as being
necessary and sufficient for adding fault-tolerance to a rich class of
systems. The use of detectors and correctors will permit efficient
implementation as the knowledge of application-specification is used
in computing the specification of the required components. Also, by
permitting the reusability of fault-tolerance components, the
framework will help in reducing the development cycle for a system.
To simplify the reuse of the fault-tolerance components, Dr. Kulkarni
will develop a component-template language to specify templates
--which will be instantiated by the developers of fault-tolerant
systems-- for commonly used components. Dr. Kulkarni will also
develop heuristics to reduce the complexity of automating the addition
of fault-tolerance. Finally, these heuristics and the
component-templates will be used to develop a tool for automating the
addition of fault-tolerance.